Mathematical Sciences: Bialgebra Structures in the Theory ofRepresentations of Quantum Groups and the Quantum Yang-Baxter Equations

This project is concerned with the construction of the quantum analogs of enveloping algebras, their representation theory, and solutions to the quantum Yang-Baxter equation on representation spaces. The principal investigator will use a module theoretic approach to the quantum Yang-Baxter equation. Particular emphasis will be given to classifying solutions in the 2-dimensional case. The class of finite dimensional quasitriangular Hopf algebras will also be studied with attention given to categorical constructions. Quantum groups are a new area of research for both mathematicians and physicists. On the mathematical side, it combines three of the oldest areas of "pure" mathematics, algebra, analysis and geometry, yet it is of great interest to physicists working in conformal quantum field theory.